Local and Regional Teacher Development Program: Retraining and Upgrading Precollege Physics and Physical Science Teachers

The University of California, Riverside, is sponsoring a program to retain current physics teachers who are teaching outside their college major, in order to improve their classroom presentation. The program will provide specific teaching aids, and will review the mathematics essential to the teaching of physics. Twenty-eight high school and junior high school teachers of physics and physical science will attend a four-week summer workshop. Participants will be drawn from the Riverside and San Bernardino County Schools. Weeks one and two of the workshops will cover a number of basic physics principles and the construction of demonstrations which explain these principles. In addition to previous activities, week three will review the mathematics necessary to the teaching of physics and will incorporate computer usage. Week four will be devoted to the specific interests and problems of the individual participants. Teachers will return to their schools with lecture-demonstration devices designed and built during the summer. The workshop will be supplemented by a series of guest lectures. During the academic year, there will be two one-day workshops in February and May, where teachers will share their experiences of incorporating the materials into their classes.